Support for International TOGA Project Office

The purpose of this interagency transfer to the National Oceanic and Atmospheric Administration is to provide support to the International Tropical Ocean and Global Atmosphere (TOGA) Project Office of the World Meteorological Organization in Geneva. **//